RCN: Biodiversity Mechanisms of Ecosystem Regulation in the Global Environment (BioMERGE)

Biodiversity represents a complex and rapidly changing feature of
ecosystems that is currently under intensive investigation by two distinct
groups of scientists; those that study its distribution and those that
study its function in ecological processes. Understanding the
environmental consequences of widespread changes in biodiversity, however,
requires bringing these groups together. BioMERGE (Biotic Mechanisms of
Ecosystem Regulation in the Global Environment) will be a
research-coordinating network that will foster the merger of these two
groups. It will develop electronic networks to coordinate the sharing and
dissemination of scientific findings among participating scientists. It
will also sponsor a series of workshops that will periodically assemble
core participants to resolve emerging theoretical and empirical issues,
develop analytical tools, evaluate and recommend scientific protocol, and
identify future priorities in biodiversity research. BioMERGE will also
serve as an information gateway for both scientists and non-scientists
alike by providing non-technical consensus papers, bibliographies,
glossaries, and summaries of important findings.